Research in Elementary Particle Physics

This award covers experimental Elementary Particle Physics Research by a group at the University of Washington in collaboration with other NSF and DOE supported scientists. The group will continue studying pi and K-meson production and decay and Mu-meson scattering at Fermilab. They also will study the properties of proton-proton collisions at the highest attainable energies at the Superconducting Super Collider.